IPY: Improving the Public's Understanding of Polar Research Through Hands-On Fellowships for Science Journalists in the Arctic and Antarctic

This project is being developed for science journalists to increase and improve the reporting of the science of polar environmental change. It is modeled after the existing science journalism program run by the Marine Biological Laboratory since 1986. This project will enable 30 science journalists to travel to the Arctic and ten journalists to Antarctica over three years to study and experience polar research in an intensive, hands-on manner. The program has 3 components: a week long Polar Hands-On course at the Toolik Field Station in Alaska in which the journalists conduct science; a one-week period in which journalists will be teamed to work with polar research scientists; and travel for journalists to travel to Palmer Station in Antarctica to spend two weeks participating in Antarctic research. Journalists will submit regular dispatches about their work in the form of a Polar Science Blog and will produce stories about their experience.